Travel Grant: Enabling Students and Early-Career Scientists to Attend the 12th International GEOS-Chem Meeting (IGC12)

This project supports student and early career travel to the 12th International GEOS-Chem Meeting. GEOS-Chem is an open-source global 3-D model of atmospheric composition used by hundreds of research groups around the world, including over 50 research groups in US universities. Modeling of atmospheric chemistry is a grand scientific and computational challenge because of the need to simulate hundreds of gaseous and aerosol chemical species closely coupled to each other and interacting with transport on all scales. This meeting will inform and stimulate fundamental research in modeling of atmospheric composition with links to atmospheric dynamics, biogeochemistry, and air quality.

Applications of GEOS-Chem span a very wide range of atmospheric composition components, including oxidants, aerosols, carbon gases, stratospheric chemistry, mercury, persistent organic pollutants, and others. GEOS-Chem is a grass-roots community model that relies heavily on model developments and diagnostic studies by students and postdocs at universities. A central application of GEOS-Chem is as a tool to interpret atmospheric observations. Effective communication between modelers and experimenters is critical for advancing knowledge of atmospheric chemistry.